CiC (RDDC): Continuous Bulk Processing in the Cloud

This research explores an alternative data processing architecture that
fundamentally improves computing efficiency to reduce costs and provide
enhanced data mining capabilities for cloud computing. The next major
advancements in IT, medical, and science informatics will largely be
dictated by our ability to store, manage, and analyze large amounts of
information. For many important problems, advances in data acquisition
tools are rapidly increasing data generation rates, exceeding our ability
to manage and process the data they produce.

This proposal investigates novel architectures for continuous bulk data
processing, which support data-intensive applications that perform complex
multi-step computations over successive batches of input data (e.g., from
scientific or medical instruments), allowing analytics to simply be
updated, not recomputed, when new data arrives. The research seeks to
raise incremental processing as a first-class abstraction, significantly
lowering the barrier of data-intensive projects to take advantage of cloud
computing. Towards that end, the work will develop data analysis portal
architectures to increase the reach of on-demand data analytics across
various application domains. As a case study, it will develop a portal for
fatty-liver disease, allowing care givers on-demand access to medical
analytics to improve care, reduce cost, and improve clinical outcomes for
this important disease.